Two Partial Differential Equations Modeling Geophysical Fluids

Wu
DMS-0907913

This award is funded under the American Recovery and
Reinvestment Act of 2009 (Public Law 111-5). The project focuses
on two well-known partial differential equations modeling
geophysical fluids: the surface quasi-geostrophic (SQG) equation
and the two-dimensional Boussinesq equations. The major
objective is to develop strategies and effective approaches for
solving the global regularity problem on the classical solutions
of these equations. The global regularity issue concerning these
equations has recently attracted substantial attention and much
important progress has been made. However, it remains open in
the cases of the inviscid SQG equation, the SQG equation with
supercritical dissipation, and the inviscid Boussinesq equations.
To deal with the inviscid or supercritical SQG equation, the
investigator combines extensive numerical computations with
analytic and geometric approaches. The immediate plan is to
study the curvature of the level curves in the spatial regions
where the gradients are comparable to the maximal gradient. The
boundedness of the curvature in these regions would rule out any
finite-time singularities. The strategy on the global regularity
issue for the two-dimensional Boussinesq equations is to
gradually reduce the dissipation and thermal diffusion. The
first aim is at the case when there is only vertical dissipation
or thermal diffusion. In contrast to the recently resolved case
with horizontal dissipation or thermal diffusion, the situation
now is more sophisticated due to the "mismatch" of derivatives.
To handle this case, new tools such as logarithmic type
inequalities involving Sobolev norms of derivatives in different
directions are developed.

The three-dimensional quasi-geostrophic equations derived by
J. G. Charney in the 1940s have been very successful in modeling
large-scale motions of atmosphere and oceans. The dynamics of
these three-dimensional equations with uniform potential
vorticity reduces to the SQG equation. The SQG equation has been
very useful in studying many weather phenomena such as
frontogenesis, the formation of sharp fronts between hot and cold
air. Mathematically, frontogenesis corresponds to the
fundamental issue of whether classical solutions of this equation
can develop finite-time singularities. This project helps
improve the understanding of many weather phenomena governed by
this equation. Boussinesq equations model many flows in nature
such as oceanic circulation, central heating and natural
ventilation. The study here of the potentially singular behavior
of solutions to the Boussinesq equations not only yields a
significant contribution to the mathematical issue of global
regularity but also has potential environmental applications. As
part of this project, several Ph.D. students of the investigator
are actively involved in the proposed research and develop
analytic and computational skills that enable them to become
capable scholars and highly skilled workforce.